Vitamin D-binding Protein of Hepatic Cytosol

The aim of this study is to contribute to a better understanding of the metabolism and function of Vitamin D-3. The goal of the work outlined is to whether vitamin-binding proteins of liver cytosol are unique in binding properties, and stimulatory to metabolism of the vitamin by liver microsomes. Isolation, purification, and identification of vitamin-binding proteins from liver cytosol will be undertaken by conventional approaches, the purified components will be assessed for metabolism-stimulation, and details of the binding properties of the proteins will be determined. The distribution of these, or similar proteins in a variety of tissues will be studied using specific antibodies generated against the purified components.